Applications of Algebraic Geometry

Research in algebraic geometry is concerned with the solution sets
to systems of algebraic equations, and it offers tools and models
for non-linear problems across the mathematical spectrum. It now
has numerous applications in the sciences and in engineering. This
project is aimed at four specific directions: Spectrahedra and
Orbitopes, Algebraic Statistics, Tropical Geometry, and
Implicitization of Higher-Dimensional Varieties.

Spectrahedra and Orbitopes are fundamental objects in convex
algebraic geometry, an emerging interdisciplinary direction that
focuses on convex bodies with a distinguished algebraic representation.
It is driven by applications in convex optimization, especially in the
theory of semidefinite programming. The project will cement the
development of convex algebraic geometry, and it will lead to new
semi-numerical algorithms for non-linear optimization problems with
a special algebraic structure. Such problems arise frequently in
Algebraic Statistics. That area is concerned with statistical
models that can be represented by polynomials in the model parameters.
These include graphical models for both Gaussian and discrete random variables.
The project will resolve fundamental questions concerning these models, and it
promises novel computational tools for statistical inference. Tropical Geometry
is a piecewise-linear version of algebraic geometry that is custom-taylored
for modeling applied problems. The project is aimed at key open problems on
the combinatorial side of the field. Implicitization in Higher Dimensions is
a new paradigm for computer algebra, and it will lead to new tools for finding
the defining equations of parametrically specified algebraic varieties.